Scientific Computing Research Environments in the Mathematical Sciences

The support from this grant allows the Department of Mathematical
Sciences at the University of Alabama in Huntsville to
purchase and assemble on-site a 17-node, 34-processor Scyld Beowulf
Cluster
using commodity personal computer technology.
This equipment is dedicated to the support of computationally intensive
applied mathematics research.
Major thrust areas of this research program include:
Robust feedback control of fluid flows and combustion, bifurcation
analysis
for large scale systems, numerical simulation of relativistic plasma
and the modeling and simulation of epidemics transmission.
The projects specifically included in the grant proposal are:
(1) Robust feedback control of fluids and combustion systems.
(2) Bifurcation analysis for large problems: algorithms, software,
applications to MEMS.
(3) Detailed numerical calculation of the equation of state for a
relativistic pair plasma.
(4) Modeling impacts of environment changes on
transmission of mosquito-borne epidemics.

They develop complex mathematical models, feedback control methods
computational algorithms and sofware for applications such as
combustion instabilty for novel combustors, reducing drag/increasing
lift
for better maneuverability of vehicles, dynamics
of Microelectromechanical systems (MEMS) products, dynamics
of mosquito borne diseases and impacts of environmental changes,
and astrophysical simulations of high energy sources.
The impact of these projects will be felt across a broad spectrum of
problems in science and engineering and in the training of a new
generation of applied mathematicians skilled in parallel computation.
Additionally, the machines will greatly enhance departmental research
and education infrastructure at all levels. They will be made
available to all departmental faculty, undergraduate and
graduate students.